Great Lakes Environment Exhibition

9453774 Coyne The Great Lakes Museum of Science, Environment, and Technology will develop a 10,000 sq. ft. exhibit focusing on The Great Lakes Environment. Addressing the core mission of the museum, the exhibit will promote understanding about "the interdependence of scientific, environmental, and technological activities in the Great Lakes Region." The exhibit will focus on the Great Lakes as an ecosystem. By means of interactive activities, visitors will learn how this ecosystem was formed, the web of life it supports, the stresses it receives, and the efforts to restore its health. The Great Lakes Museum is a new 165,000 sq. ft. facility located in downtown Cleveland on the Lake Erie Shore and is scheduled to open in 1996. The exhibit area will cover 50,000 sq. ft. and will be fully accessible. An entire floor will be dedicated to the Great Lakes Environment. Complementary educational programs will consist of the following: take home activity guides to encourage the discovery and exploration of ecosystems in backyards or neighborhoods, pre and post visit activities for school groups, and teacher enhancement activities. Museum staff are participating in the planning process for the Urban Systemic Initiative of Cleveland and activiites and content of exhibits will be developed to complement the curriculum. The museum will develop a menu of activities and databases for electronic networking with homes and schools. They will have video conferencing capabilities to connect the museum with classrooms.